Algebraic Tolopology and Quantum Field Theory

DMS-0210822
Dennis P. Sullivan

One of the effective techniques of mathematics for dealing
with problems of several parameters or dimensions is
combinatorial, or algebraic, topology. In that field,
geometric objects, called cycles, associated to constraints
are grouped into deformation or homology classes which then
combine and decompose in various combinations to define
algebraic structures of such richness to provoke a theoretical
study in the own right of a variety of algebraic structures.
Recently some of these structures have appeared in theoretical
physics in the attempted formalism to describe term by term
models for quantum phenomena.

In collaboration, the principal investigator has recently
discovered related algebraic topology structures in the
space of strings (open and closed) filling up a space (time)
model. This award will sponsor investigations to
conceptually clarify the occurance of algebraic topology
in theoretical quantum physics and to relate the results of
these investigations to new string algebra.